Continued Development and Application of 3-D Numerical Modeling and Imaging of Earth Structure and Earthquake Source

This research continues the development, implementation, testing and application of codes for both acoustic and elastic 3- D finite-difference and pseudo-spectral modeling and imaging of both earth structure and earthquake sources. Applications of the modeling include simultaneous simulation of both body and surface wave data recorded on crooked refraction profiles, data recorded in bore-holes, and whole-earth simulations. Applications of the imaging include migration of 3-D controlled source data in both stacked and pre-stack form, and imaging of earthquake sources in both time and space. These capabilities will be used by oil and mineral industries and by earthquake and tectonic investigations.